Geometry and Algebra of Nonlinear Control Systems

0072369
Kawski

This project builds on the formalism of chronological algebras to study the
geometric foundations of nonlinear control systems. Geometrically, the
chronological product encodes the interaction of the components of
controlled nonlinear dynamics. Algebraically it is the fundamental
structure that underlies effective series expansion and formal solution
algorithms. Areas of special focus are interconnections of systems, and
systems that exhibit full nonlinear dependence on the control. In either
case, specific objectives are to develop normal forms and to find effective
series (or product) representations (using tools from algebraic
combinatorics). Possible applications include algorithms for path
planning, feedback stabilization, optimal control and even numerical
integration. A complementary second thread develops interactive
visualization tools for research (simulation and experimentation) and for
communication. This research is motivated and driven by the desire to
understand the fundamental, common principles that govern the
interactions of dynamical systems on any scale, from molecular levels to
astronomical dimensions. The diversity of possible outcomes is a
consequence of nonlinear effects that permeate our environment: When
combining two subsystems, the result is generally different from just the
sum of the parts.

This research focuses on further developing the algebra which captures
such nonlinear interaction, where the effect of a+b is more than just the
sum of the effects of a and b. The chronological algebra provides the
formal language to model such interactions where even the order in which
pieces are put together matters, where a*b is generally different from b*a.
The control perspective is distinguished from the basic study of dynamical
systems as it aims beyond just descriptive understanding: The objective of
control theory is to exploit the subtle nature of the interactions in order to
shape complex systems -- often via only minute interference with how the
parts interact. While this mathematical research applies to virtually any
kind of dynamical system, including even social, medical and financial
environments, this project will focus on mechanical systems (like large
satellites with several moving parts) in efforts to demonstrate the general
principles. An important component of this project is the development of
interactive visualization tools. These are used for research, and for
communicating the geometry of the nonlinear interactions, to demonstrate
how the profound understanding of the fundamental mathematical
structures leads to effective means of controlling complex systems. This
visualization effort also provides a rich environment for undergraduate
students to connect with advanced theoretical research. It may prove to be
an effective means to expand the pipeline bringing new talents into
mathematical research.